DECADAL ASSESSMENT AND OUTLOOK REPORT ON ATOMIC, MOLECULAR, AND OPTICAL SCIENCE

This award provides partial funding to the National Research Council for carrying out a study of the decadal status of the field of Atomic, Molecular, and Optical physics, assessing programs and looking ahead to the future. The work will be done under the auspices of the NRC Committee on Atomic, Molecular, and Optical Science (CAMOS).